Doctoral Dissertation Research: Subjacency, the Empty Category Principle (ECP), and the nature of constraints on phrase movement

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

In general, it is possible to form a question by 'moving' a wh-phrase like "who” or "which boy" out of a seemingly arbitrary number of clauses, as in "Who did Allie say that Amy saw?", "Who did Alicia hear that Allie said that Amy saw?", and so on. In these questions, "who" is the logical object of "saw" yet appears at the beginning of the sentence. However, there are certain syntactic environments, commonly called 'islands,' in which question formation is not possible. A question like "Who did the book by delight everyone?"--whose intended meaning is 'who is the person such that the book by that person delighted everyone'--sounds unnatural to speakers of English, suggesting that it is not a possible question despite having a reasonable meaning. Some linguists have claimed that these constraints disappear when the offending structure is elided, such as in a sentence like "Amy said that the book by someone delighted everyone, but I don't remember who". Such sentences sound a bit more natural to speakers of English, but their status isn't entirely clear. This dissertation project will advance linguistic theory by using recent experimental techniques to ascertain whether such sentences are grammatical. In advancing the field, this project will also support education and diversity by training an undergraduate research assistant in these experimental techniques, scientific thinking, and statistical analysis.

Using behavioral methods, this doctoral dissertation project probes the link between speakers' reported judgments and their sensitivity to structure in questions with and without ellipsis. The goal is to determine whether the same principles apply to dependencies involving ellipsis as those that do not, with the longer term goal of identifying the computational principles governing syntactic locality. More generally, the project addresses the consequences of mismatches between reported acceptability and subliminal sensitivity to structure in acceptability judgments.